Space Weather: Real-Time Analysis of Heliospheric Plasma and Magnetic Structures Using Remote-Sensing Observations

A tomographic technique will be used to map solar wind structures, determine the extent of their interactions with the Earth, and locate their origins in the solar corona. The basic input data are interplanetary radio scintillation measurements supplied by the Solar Terrestrial Environment Laboratory of the Nagoya University (Japan). These are combined with a sophisticated numerical magnetohydrodynamic model of the heliosphere in order to reconstruct the trajectories of propagating interplanetary disturbances. This technique will be applied in real-time to ground and space-based data, and the results will be made available to the international community through the NOAA web-site. This study will allow the visualization of the extensive region between the Sun and the Earth with a novel level of completeness.